Cyborgs: A Natural History of Machines and Humans

The Science Museum of Minnesota (SMM) will develop "Cyborgs: A Natural History of Machines and Humans." The Project will result in a national traveling exhibit, a web site, and a complement of related educational programs focused on the boundaries between humans and their machines and on recent scientific efforts to understand the human body and mind. The 6,000-square-foot exhibit will open at the SMM before traveling to the six large museums in the Science Museum Exhibit Collaborative (SMEC), and then will be available for lease by other museums.